Collaborative Research: Mobilizing Information Technology Systems to Motivate Reduced Energy Consumption and Carbon Dioxide Emissions

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

0854399/0854445
Mankoff/Landay

This research will leverage mobile technologies and sensors to empower individuals with personal feedback about their carbon emissions and suggestions on how to improve. The project will be on transportation activities, with three foci: (1) sensing individual carbon footprints using commodity mobile phones, (2) developing feedback visualizations on the web and on phones that support in-the-place awareness about carbon footprints that explicitly handle issues of uncertainty at the user interface level, and (3) validating and testing techniques in the domain of transportation. Field deployments will explore the relative accuracy of the sensors employed and the impact of visualizations on users' ability to identify which areas represent opportunities for reduction. High school outreach will be included through CMU's Green Design Apprenticeship program.